Variable Pressure and Temperature NMR Studies of Transition Metal Complexes (Chemistry)

Studies of the effects of high pressures on the rates of chemical reactions reveal information about reaction mechanisms which cannot be obtained in any other way. In particular, such experiments provide insight into the expansions and contractions which molecules must undergo in order to react. However, such experiments are very difficult and require specialized equipment available at only a small number of universities. The Principal Investigators are the only group in the United States applying such techniques to the study of electron transfer reactions. Volume of activation studies on outer-sphere electron transfer reactions will be continued and expanded. It is planned to measure molar volumes in non-aqueous solvents in addition to doing high pressure NMR research. The prime goal is to obtain volume of activation values as an aid in determining reaction mechanisms and testing of theories for the kinetic behavior. In addition, it is planned to look at solvent exchange kinetics and equilibria in mixed solvent and with mixed ligand systems, e.g. Co(II) complexes with HMPA in HMPA, or Co(II) complexes in water-methanol and water-ammonia mixtures. These measurements will be done at various pressures and temperatures. Besides kinetic data, information on solution species and structures will be obtained.